A Teacher Training Program: The Science, Techniques and Ethics of Molecular Biology

A teacher training program: The Science, Techniques and Ethics of Molecular Biology This program is designed to provide enhancement training for 288 inservice high school biology teachers from California in the principles and techniques of recent discoveries in molecular biology and biotechnology, as well as the ethical and societal implications of the use of the technology. The three-year program will provide training at three (first year), four (second year) and five (third) Enrichment Centers throughout California at campuses of both the California State University and the University of California. Each summer, each of the Enrichment Centers will offer a two week laboratory based workshop in the theory and methods of molecular biology including DNA isolation, gel electrophoresis, restriction endonucleases, and bacterial cell transformation. After completion of the laboratory workshops, all participants will come together for a three-day symposium in which ethical and social issues of the new biology will be addressed. In addition, curriculum guides will be developed to facilitate the participants in the integration of this material into the curriculum in their schools. An amount equivalent to 129% of the NSF award is being contributed by San Francisco State University and other sources as cost-sharing.